Travel to the 18th Annual International Conference of the IEEE Engineering in Medicine and Biology Society, October 31-November 3, 1996, Amsterdam, The Netherlands

9617777 Trayanova Biomedical engineering represents an area of extreme interest to both the medical and engineering communities. Significant interaction is required to generate the synergism required to merge the engineering disciplines with physiological constraints. This grant provides funds for travel to a technical conference that brings together the researchers in both medicine and engineering to merge their efforts. It also provides an opportunity to allow practitioners to interface with researchers. ***